Collaborative Research: Dietary Deficiencies of Protein and Lipid and the Experimental Resolution of 'Food Limitation' in Freshwater Zooplankton

Food limitation in herbivorous zooplankton (Daphnia, Diaptomus, also rotifers and protozoa) will be assayed using a recently developed technique--amendments of natural diets by additions of custom formulated microparticles containing lipid and fatty acids or proteins of various amino acid compositions. Concurrent analyses of diet--as (1) food items ingested, (2) biochemical composition of <30 um seston, (3) nutrient- limitations of ingestable algae, and (4) dietary deficiency effects on reproduction --will contrast spring ve summer conditions of nutrient--poor vs nutrient-rich lakes. Researchers focus field and laboratory experiments on potential compensation mechanisms such as diet breadth vs selectivity, excess feeding, omnivory and vertical migration as points of contrast between a generalist grazer (Daphnia) and a more selective feeder (Diaptomus), and test the idea that the "microbial loop" is effectively though differently utilized by both strategies.